Engineering Research Equipment Grant: Supercritical Fluid Chromatograph

This grant is for purchase of a supercritical fluid chromatograph (SFC). It will provide versatile analytical capabilities for an ongoing NSF supported projects on novel bioreactor configurations and on development of novel enzyme- catalyzed reactions to produce new materials which cannot be manufactured by conventional chemical methods. SFC offers significant advantages over other methods for chemical analysis such as gas-liquid chromatography and high- performance liquid chromatography. SFC will enable the investigators to obtain essential quantitative data efficiently and rapidly and will also enable them to make quantitative measurements at very low concentrations that cannot be made with conventional equipment.